A Proposal to Support Young Scientists and Graduate Students in 2007 IEEE Communication Theory Workshop in Sedona, Arizona, USA

The proposal requests partial support for young researchers and graduate students to participate in 2007 IEEE Communication Theory Workshop to be held in the Hilton Sedona Resort & Spa, Sedona, AZ. The NSF support will provide opportunities for approximately 25 young participants to interact with established researchers in a small and inspiring workshop setting. The focus of the workshop is on the interplay among communication theory, information theory and network theory.
The broader impact of the proposal is fostering an environment of technical discussions and debates among two different communities of communication theorists and networking researchers. In addition, the workshop is set out to encourage participation by young scientists and researchers.